Critical Behavior and Disorder Effects in Statistical Mechanics and in Quantum Systems (Physics)

Research is in statistical mechanics with emphasis on systems with quenched disorder. Topics include fundamental issues in the theory of random field and spin-glass models, localization effects and extended states for random operators, and other questions concerning time evolution and critical behaviour.